The G.A.M.E.S. Experience -- EARLY ALERT

Christopher Newport College will initiate a four-week, commuter Young Scholars (EAI) project in Mathematics for 30 students entering grades 7,8. Summer activities include visits to NASA, Busch Gardens Physics Fair, and workshops developed by the Goudreau Mathematics Museum. Participants will return for follow-up activities on 9 Saturdays during the academic year.